RIA: Adaptive Equalization and Detection of Cochannel Signals for Time-Varying Channels

Shynk This research is developing nonlinear adaptive algorithms for the detection of cochannel signals transmitted over time- varying channels. These algorithms directly estimate both channels, and the results are used to perform joint sequence estimation or joint symbol detection. At least two performance criteria are being considered, including maximum likelihood sequence estimation and maximum a posteriori symbol detection. The focus will be on applications where the channels are rapidly time-varying and the data are transmitted in short bursts. Dual- mode adaptive algorithms that combine fast training with blind equalization/tracking for cochannel signal detection are also being developed. These algorithms will be designed to have a superior symbol error rate performance compared to conventional interference cancellation techniques.